Engineering Research Equipment: Precision Ion Polishing Equipment

9622143 Meier An engineering research equipment grant will support the acquisition of a general purpose up-to-date precision ion milling polishing system for preparation of electron transparent specimens for TEM and AP-FIM observations. The equipment will be used in a number of research projects related to high resolution studies of the microstructure of layered coatings, environmental degradation, superconductivity, etc. ***